Active Self-Tuning Vibration Control of Machine Tools Using Dynamic Absorbers

9313394 Rouch The research is for the development of techniques for controlling chatter and vibration in machining by use of a actively controlled dynamic absorber. The inertial force generated by actuation of the secondary mass relative to the cutting tool assembly modifies the system dynamic characteristics. The proof of concept design using a piezoelectric actuator packaged inside of the boring bar has been demonstrated to be effective. The research is to provide an enhanced theoretical basis for the approach and extend its range of application to a wider variety of practical machining conditions. In particular, robust controller methodologies will be investigated and the system design parameters optimized. Higher force and higher stroke capabilities will be sought in the application to boring operations. Extension to multi point machining such as milling are also to be considered. Successful completion of the research should enable a stable operation of boring bars with higher length to diameter ratios. Material removal rates and accuracies in boring and milling operations will be improved.